Theoretical and Mathematical Physics

The work will carry out research on exactly solvable models for quantum and classical systems. Emphasis is put on studying correlation functions for the 1-d Hubbard model and the Sine-Gordon model. Connections to conformal field theory and quantum groups will be explored.